SGER: Application-Oriented Object Architecture

CCR-0120155
Karne, Ramesh
Towson University
SGER: Application-Oriented Object Architecture

ABSTRACT

This SGER project studies the feasibility of an application-oriented object architecture (AOA) to revolutionize the way computer systems are built and drastically reduce the problems of obsolescence and reengineering. The proposed 2-layer architecture consists of an application unit (AU) and an application object (AO). The two form a substrate-software pair with all software functionality in the AO: no additional software is needed and the AU is optimized for the particular AO. This architecture is demonstrated by using an existing computer system such as a desktop and a commonly used resume document application, using a simulation environment prototype for the AU. The work is exploratory in nature and intends to lay the groundwork for a more substantial project. The project intends to make significant contributions to computer systems development and redefine the roles of traditional software, hardware, and applications, providing a new foundation for computer systems based on applications instead of environments.